Development and Field Test of an Internet-based Multimedia Simulation and Remote Laboratory System of Laser Cladding Technology for Technicians

This project is developing and field testing Internet-based, multimedia-interfaced, and database-supported laser cladding simulation modules and a supporting remote laboratory. It introduces this technology to a variety of two-year college disciplines, including aviation maintenance and welding. This project builds upon the prior work of the principal investigator at Alion Science and Technology that developed and commercialized the robotic direct-diode laser cladding technology as an emerging high-quality and low-cost process for the remanufacturing industry.

The project is harnessing synergistic laser cladding across disciplines and applications that have a significant impact on national defense, energy, and transportation industries. It enables industrial laser operation, safety, and part processing training in an authentic robotically guided laser cell, which otherwise would not be possible in a conventional two-year community college laboratory. The project includes a number of industry partners leading the field of laser cladding equipment and applications. Project results are being disseminated through the Manufacturing Education Resource Center, as well as through faculty professional development workshops and two-year college field tests.